Targeted Infusion Grant: Infusing Computer Engineering Tools (CAx) into Engineering Design Sequence Curricula

[HRD 0811750] Prairie View A&M University is infusing modern computational engineering tools (CAx) across and throughout their design curricula in the Mechanical Engineering Dept. The goal is being achieved through the development of self-learning tutorials and modules, and through introducing closed-form and open-ended projects to reinforce the teaching of engineering fundamentals. The CAx tools are systematically integrated in the engineering design courses through freshman to senior. CAx tools, including Unigraphics NX5, MSC. ADAMS, ANSYS, and Altair.Hyperworks, are being adopted in order to train students in engineering design and to analyze engineering problems.